SBIR Phase I: Large-Scale Production of Monodisperse Single-Walled Carbon Nanotubes

This Small Business Innovation Research Phase I Project will evaluate a method to produce large quantities of single-walled carbon nanotubes that are monodisperse in their diameter and/or electronic type (semiconducting or metallic).

Availability of large quantities of monodisperse SWCNTs by size and electronic type would enable many potential optoelectric and composite technologies using carbon nanotubes.

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).